Topology & Dynamics of Moduli Spaces of Geometric Structures

DMS-0103889
William M. Goldman

This project continues the PI's investigation of locally
homogeneous geometric structures on manifolds, their moduli
spaces and their symmetries. The holonomy correspondence
relates moduli of geometric structures to the representation
theory of the fundamental group. The primary geometric
structures of this investigation include conformally flat
Lorentz and Riemannian structures, real projective and affine structures, and real and complex hyperbolic structures.
Dynamical questions concerning both the action of the
fundamental group, various flows (including and generalizing
the geodesic, horocycle and frame flows) and the automorphisms
of the moduli space will be studied. The close interaction
between the dynamics of the mapping class group and the
global topology of the moduli space is especially notable.
The moduli spaces often possess symplectic structures which
lead to important and mysterious algebraic constructions,
such as the Lie algebra based on curves in a smooth surface.

These objects play an increasingly important role both
in mathematics and physics. Lorentzian manifolds arise as
cosmological models in relativity. Moduli spaces have become
central in quantum physics, and mapping class group actions
and Teichmuller space have become prominent in 2-dimensional
quantum gravity. This study lies in the interface between geometry/topology, dynamical systems, analysis and algebra.
Despite their complicated nature, the examples studied are
extremely explicit. Thus one can profitably investigate
them experimentally. Our current computer technology is
appropriate for such projects. With Dr. Richard Schwartz
and the support of the University of Maryland Mathematics
Department, the Experimental Geometry Lab has been operating
for over a year. This lab has included software projects
performed by postgraduates, graduate students, and especially undergraduates.